Collaborative Research: Distributing the load: using the Structure-Behavior-Function framework to inform instructional design in introductory biology

This collaborative project transforms learning in introductory biology courses through a
technology-supported, active-learning pedagogy that is informed by theory and
evidence about learning systems. Specifically, this project overcomes students'
problems in understanding complex biological systems and distributes learning in a way
that actively engages students in and out of class. This project evaluates the
effectiveness of the pedagogy, provides research on how introductory biology students
articulate complex processes within and across biological systems, and investigates
development of reflective and deep learning approaches.

The intellectual merit of this project results from a technology-rich approach, allowing
instructors to communicate selected content outside of class and replacing traditional
lectures with promising active learning strategies in class. An approach adapted from
engineering that analyzes systems in terms of their Structure, Behavior, and Function is
the theoretical framework employed to facilitate learning and understanding of biological
systems.

This project creates broader impacts by building and strengthening community within
and across institutions. At the collaborating institutions alone, several hundred students
are expected to benefit from the enhanced instructional framework. Dissemination of
practices and curricular materials should impact students at multiple institutions and
levels in the biology curriculum. Research findings are expected to be disseminated as
oral and poster communication at local and national meetings of professional societies.
Further, outcomes of this research are also expected to be disseminated via
manuscripts targeted for science education journals. Contributions to the STEM
education research literature should yield insights to the broader academic and science
education research communities.